Proposal for Support for Publication of the Twenty-Third Symposium (International) on Combustion, University of Orleans, France July 22-27, 1990

The Combustion Institute holds biennial international meetings to present the latest experimental and theoretical research results across the spectrum of combustion science and engineering. The 1990 meeting is to be held in Orleans, France, and is expected to attract around 1000 participants and produce 200 carefully screened original and invited review papers. Funds are being provided to help offset the costs of publishing the bound proceedings.